Political Budget Cycles

POLITICAL BUDGET CYCLES

This purpose of this project is to study fluctuations in fiscal policy
induced by the election cycle from both a theoretical and empirical
perspective. Conventional wisdom is that incumbents use economic policy,
especially fiscal policy, before elections to influence electoral
outcomes, with electoral considerations often seen as a key factor in
policymaking around elections. Among economists, however, opinion is
divided. One view is that fiscal expansion is indeed used in election
years in many countries to generate desired economic and hence electoral
effects, the other is that fiscal manipulation is punished rather than
rewarded at the polls.

Recent work of by the PI suggests that the nature of political budget
cycles depends on the experience of the voters with the electoral
system. What accounts for these differences between new and established
democracies? Is deficit spending electorally rewarded in the first group
but punished in the second? What are the characteristics of new
democracies that may explain the strength of the budget cycle.
Especially important here is the information voters have about fiscal
magnitudes. Drazen proposes several ways to measure this, including fiscal
transparency indices. The project will attempt to compare this
explanation with others, such as the fluidity of voting patterns or the
greater amount of rent-seeking that it is argued may characterize new
democracies. The project also studies why experienced voters respond to
election-year economics, focusing on the importance of the amount of
information they have when they enter the voting booth.